Video Applications Modules in Calculus

A calculus video appplications library is being produced that will expose students to exciting applications of mathematics and will include a printed teacher's guide. The modules can also be used in faculty development activities and will contain print packages with special attention to showing how to introduce these ideas into the classroom.